A Parasitism-Specific Hemolymph Protein in the Fruit Fly Host, Anastrepha suspensa: Its Identification, Characterization and Function

When females of the parasitic wasp Biosteres longicaudatus lay their eggs in larvae of the Caribbean fruit fly, Anastrepha suspensa they also introduce viruses into the blood of the host insect. In addition, a new protein appears in the blood of the parasitized larvae within 2-3 days after parasitization but is absent from unparasitized individuals. The numbers of parasite larvae in a host influence the amount of the protein detected and also inhibit further development even before the parasites consume the host's tissues. Injections of the crude protein into healthy fruit fly larvae inhibit their development to the pupal stage in the same way as does superparasitism (several parasites/larvae). Thus, this parasitism-specific protein may be the direct cause of fruit fly development disruption. In this laboratory, Dr. Lawrence will purify the protein in order to identify its specific effects on the host in the hope that it can be utilized to disrupt fruit fly development and thereby suppression adult populations. In the work described in this proposal, the PI wishes to determine where and when the protein is secreted in order to extract the largest amount of the protein during the time of its maximum synthesis. The basic physiological and biochemical studies proposed in this project will help to characterize the protein and indicate how, if at all, it may be exploited as a potential tool in fruit fly developmental disruption and control. There are some indications that this parasitism-specific protein may be related to the viruses introduced with the wasp egg. Thus, the viruses themselves could potentially be cultured and the protein extracted (but this is not part of the proposed study). The Caribbean fruit fly is a pest of several tropical and subtropical fruits in Florida and parts of the Caribbean. It is a close relative of the North American apple or blueberry maggot and the notorious Mediterranean fruit fly (Medfly), a major threat to citrus in California and Florida. The Medfly and related fruit flies are attacked by parasitic wasps that are closely related to the one proposed in this study. Thus these research findings would be most relevant to these fruit fly-parasitic wasp systems. Further, since this parasite is also used in biological control programs against the Medfly in countries like Greece, the studies proposed here have application potential for fruit fly control.